Research Experiences for Undergraduates in Chemistry at the University of Florida

This Research Experiences for Undergraduates (REU) Site project is in the field of chemistry. For a three-year period beginning April 1992, ten (10) undergraduate students will spend ten (10) weeks engaged in basic research under the direction of the faculty members in the Chemistry Department. Students will be members of active research groups, and participate in research projects designed to suit their training. The program includes social events, tours, and a weekly seminar series featuring visiting industrial speakers in addition to faculty from the department. The seminars are aimed at the undergraduate audience, and provide an excellent perspective on research careers and opportunities in both industry and academics. Student participants will be asked to write a journal style research report and speak about their work at regularly scheduled group meetings.